SBIR Phase I: A New Bio-based Monomer for the Coatings Industry

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project lies in the replacement of key petroleum-based chemicals used in the paints and coatings industry, representing a $7B industry that is growing at 7% per year. The total addressable market includes 3 similar diols: 1,4-butanediol (1,4-BDO), 1,5-pentanediol (1,5-PDO), and 1,6-hexanediol (1,6-HDO). In this project, 1,5-PDO is produced from furfural, a chemical made from renewable agricultural residues such as corn cobs and wood chips. Bio-based 1,5-PDO can be readily substituted for 1,6-HDO in many applications due to its analogous molecular structure and is similar enough to 1,4-BDO that it can be substituted for it in some applications. Rigorous technoeconomic analysis shows that this "green" 1,5-PDO can be made at 3x lower costs than oil-derived 1,5-PDO, opening new opportunities for its use as a renewable monomer for paints, coatings, adhesives and plastics.

This Small Business Innovation Research (SBIR) Phase 1 project will allow the technology to be developed with commercially available fixed bed pellet catalysts to prepare the technology for scale-up. Thus far, the technology has been demonstrated in small scale fixed bed reactors with powder catalysts. A commercial scale process requires the use of pelletized catalysts due to inoperable pressure drops over powder catalysts in commercial-scale reactors. The higher flowrates inherent with larger scale reactors cannot flow through the tightly packed powder catalysts and cause a large degree of backpressure upstream of the catalyst bed; thus, pelletized catalysts must be sourced from commercial vendors and tested for activity and stability prior to scaling. The next phase in technology development is to scale up the process by >100x, enabling testing and validation of larger amounts of the bio-based 1,5-PDO product in potential customers' product lines. This SBIR Phase I project will also allow completion of the process design work needed to estimate the economics at commercial scale.